VERMONT EPSCoR SYSTEMIC IMPROVEMENT PLAN

9350540 Happ Title: Vermont EPSCoR State Systemic Improvement Plan. The Vermont EPSCoR State Plan has been designed to produce lasting systemic change in the capacity of the state for science and technology. It has four goals: 1) to build research competitiveness in science and technology, 2) to create knowledge transfer mechanisms that effectively link university expertise to the private sector, 3) to recruit and train scientists, from high school to postdoctoral, in research, and 4) to institutionalize science policy and planning for the state. Activity will be centered at the University of Vermont, the only doctoral institution in the state, and will involve other colleges across the state. About 80% of the resources will be devoted to building competitiveness in four subdisciplines: (1) The Evolutionary Ecology; (2) Computational Mathematics; (3) Receptor-Mediated Signalling and Biotechnology; and (4) Advanced Materials Science. All the clusters will interact in the EPSCoR Modeling Colloquium, an interdisciplinary seminar series which will explore general techniques for modeling complex systems and data sets. In addition, the EPSCoR project fosters interactions between academic and industrial scientists by setting up a technology transfer team, drawn from the university and the private sector and by also offering a Small Business Innovation Research public seminar program and a unique SBIR "Phase O" seed grant program to help increase the rate of SBIR submissions to federal agencies. EPSCoR activities will be used to train research students, from high school to postdoctoral. The lead laboratories will be those of the cluster faculty. Working with the Vermont NSF-sponsored Statewide Systemic Initiative program, EPSCoR will present a yearly Science-Math-Technology Careers Day for high school science students and a research program that joins highly motivated high school students and their teachers with the faculty of regional colleges. In addition, EPSCoR will provide an undergraduate research referral service, to place high school and college students in faculty research laboratories for a semester or year. ***